CAREER: Membrane Nanoelectromechanics: Towards Prestin-Based Bionanotechnology

0449379
Raphael

The proposed research is in the field of membrane-based bionanotechnology with a focus on prestin, a protein found on outer hair cell membrane and responsible for hair cell electromobility and non-linear capacitance. The objective of the proposed project is to characterize the electromechanical characteristics of membranes containing prestin and to lay the foundation for bionanotechnological devices based on prestin.